Support for Interdisiplinary Research at the Center for Advanced Study in the Behavioral Sciences

This award provides stipends and other supporting services for scholars in one-year residence as Fellows of the Center for Advanced Study in the Behavioral Sciences, Stanford, California. The objective of the project is to foster the advancement of knowledge generated by scholars conducting basic research in the behavioral sciences. The Center's structure and procedures provide an environment that is conducive to scholarly productivity as well as interdisciplinary exchange and collaboration. Fellows are chosen on the basis of their academic accomplishment and promise. The research they conduct at the Center is of their own choice and design. The Center organizes seminars, encourages the formation of informal groups, and plans common meals, all designed to promote intellectual interaction among Fellows. The Center's environment is designed to promote full-time research, and to minimize distractions from and interruptions to productive scientific work.